Connection of Texas Lutheran College to the NSFNet.

9414316 Sieben This project connects Texas Lutheran College to NSFNET through the THEnet state network. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.